Helical Polymers: Optical Activity

This research deals with an investigation to design, synthesize, and characterize helical polymers and to study their properties. The primary thrust will still be the preparation of isotactic helical polymers, those polymers whose structure consists of only isotactic macromolecular helices of one screw sense and which display optical activity based on macromolecular asymmetry. The goals are: a.)To identify clearly the initial propagation mechanism by determining the absolute configuration of all the linear oligomer of the chloral polymerization now obtained in the crystalline state. b.)To prepare polyperhaloacetaldehydes of one screw sense by initiation with bulky chiral initiators. c.)To use pure chiral fluorochlorobromoacetaldehyde as monomer for the perhaloacetaldehyde polymerization to ascertain the influence of the chiral center of the monomer on the handedness of the helical polymer. d.)To establish the limits of this newly discovered method of measuring the optical rotation of solids. e.)To perfect the potential energy calculations of configuration and conformation for the developing of the helix during chiral initiation and follow it up with computer simulation to show the "locking" of the helix based on the bulkiness of the isotactic polymer chain. f.)To investigate the synthesis of helical polymers of one screw sense in the presence of polarized light and the fabrication of helical polymers in the solid state or by direct monomer casting techniques to forum oriented high tenacity fibers.